ANZFLUX (Antarctic Zone Flux Experiment) Modeling and Analysis

*** 9615279 Martinson The proposed work is an extended analysis of a data set generated as part of an integrated research program ("Anzflux") into the oceanographic structure of upper mixed layer of the eastern Weddell Sea. It was carried out from the RVIB Nathaniel B. Palmer in the austral winter of 1994. The work proposed here concerns the integration of hydrographic and geochemical tracer data to determine the three-dimensional oceanic structure on various spatial scales for the validation of oceanic models, and specifically to determine the magnitude of the heat flux from the ocean to the atmosphere. The eastern Weddell Sea is a region where a warm regime, defined by the intrusion of warm circumpolar deep water with temperatures near +1 deg C, and a cold regime exist side by side. The cold regime occurs to the west, where deep water is overlain by a thick near-freezing mixed layer. In both regions however enough heat is seasonally carried to the sea ice to melt it completely. The specific objective of the proposed work is to improve our understanding of how the intense mixing events associated with frequent storms affect the structure and seasonal evolution of the upper layers of the ocean and the sea ice cover. The structure of the upper layers in turn affects the stability of the deeper ocean, and determines the depth of convection and the longer term variability in temperature and salinity of the deep ocean. *** ??